FRG: Collaborative Research: Topological Quantum Field Theory and its Application to Quantum Computing

The investigators plan to classify topological quantum field theories
(TQFTs) with less than six labels, prove that there are only finitely
many TQFTs with a fixed number of labels, and identify the closed images
of certain TQFT representations of the mapping class groups of surfaces.
For applications to quantum computing the investigators aim to
understand how TQFTs would arise from microscopic many-body quantum
physics. The proposed program is based on work of Turaev and
Moore-Seiberg-Walker which
essentially establish a one-one correspondence of TQFTs with modular
tensor categories.

Topological quantum field theory emerged in the 1980s from the study of
three distinct riddles: the relation of the Jones polynomials of knots to
3-dimensional topology, the fractional Quantum Hall effect (FQHE) in
condensed matter physics, and the infrared limit of 2-dimensional
conformal field theory in string theory. The connection between
topological quantum field theory and quantum computing was first explored
by Freedman and Kitaev in late 1990s. Their work opened up the
possibility of building an inherently fault-tolerant quantum
computer---a topological quantum computer. Such a computer would
exploit new states of matter closely related to TQFT. Examples of such
"topological states of matter" include electron gases confined between the
interface of two semi-conductors which exhibit the FQHE. The extreme
physical conditions for fractional quantum Hall electron gases make it
impractical to build a topological quantum computer from such materials.
To discover or fabricate new materials capable of universal quantum
computation under practical physical conditions is a goal of the proposed
program. The problem of classifying TQFTs (or equivalently topological
states of matter) is analogous to the problem of classifying the
chemical elements, and can be used to identify appropriate candidates
for quantum computing. The proper characterization of materials capable
of universal quantum computing, not to speak of their actual fabrication,
could open up a new chapter in many-body quantum physics. The
possible applications of such new materials are hard to predict,
but would definitely not to be limited to quantum computing.